POWRE: A Pilot Study of Chemoreception Mechanisms in Deposit-Feeding Polychaetes

This proposal was submitted to the NSF-wide Professional Opportunities for Women in Research and Education (POWRE) program. The PI proposes to begin research on the sensory mechanisms coordinating chemoreception in spionid polychaetes, a common deposit-feeding invertebrate. These worms are widely distributed in soft-sediment benthic marine environments and, along with other deposit-feeders, are responsible for the bioturbation that is important to this environment. Some evidence indicates that chemoreception may coordinate sediment ingestion rate and other aspects of deposit-feeding in a variety of species. The proposed research will attempt to identify some of the physiological and molecular mechanisms used by the worms to detect chemical stimuli.